The Structure, Energetics, and Dynamics of Gulf Stream Meandering

9314581 Watts The Synoptic Ocean Prediction Program (SYNOP) is a major observational and modeling program funded by NSF and ONR to understand the physics of the Gulf Stream and its variability east of Cap Hatteras to the Grand Banks. The PIs component of SYNOP consisted in two arrays of current meter moorings, inverted echo sounders and pressure sensors. The instruments were recovered during August 1990. Based on the analysis of these data sets, 12 articles were published, one MS and two PhD theses completed, and another will be completed during the Summer of 1993. This proposal request support for scientific analysis and publication of results based on data collected during SYNOP. *** @ CG^ CI^ CP^ CC^ CE^ CD^ CB^ CS^ CF^ CU^ CQ^ CK^ En^ Em^ El^ Er^ Ei^ Ep^ Ez^ Eb^ Es^ Ex^ Ej^ Ek^ ET^ EH^ EN^ EM^ EL^ ER^ EI^ EP^ EV^ EE^ EZ^ ED^ EB^ EY^ EF^ EX^ EA^ EW^ EU^ EK^ Sj^ Uj^ KT^ KV^ KY^ KW^ KU^ L T: T; T A T Y: Y; Y c e b 3 9 (9U (s1p0s3b4101T (s#H 9314581 Watts The Synoptic Ocean Prediction Program (SYNOP) is a major observational and modeling program funded by NSF F H U ? A F H $h $ $ F H U H CG Times (WN) Symbol " Univers (WN) 1 Courier 0 elite 0 prestige lettergothic 0 gothicPS 1 LinePrinter " Helv 0 AvantGarde Helvetica-Narrow 0 metro 0 presentation 0 APL 0 OCRA 0 OCRB Bookman emperorPS madaleine zapf humanist classic roman f roman g roman h Tms Rmn NewCenturySchlbk palatino souvenir garamond caledonia bodini university B Script @ scriptPS @ script c @ script d @ commercial script @ park avenue @ coronet @ script h @ greek kana hebrew roman s russian roman u roman v roman w P narrator P emphasis P ZapfChancery P decor d P old english P decor f P decor g P cooper black 0 linedraw math7 math8 P ZapfDingbats EAN pcline tech h 1 MS LineDraw ! h % % % p / Sylvia Garzoli Sylvia Garzoli